Shifting microbial nutrient allocations in greening Arctic tundra soils

Across the high Arctic, including Alaska’s North Slope, tundra landscapes historically dominated by tussock grasses and lichens are increasingly undergoing vegetation greening – the incursion and spread of taller woody shrubs such as dwarf willow, aspen, and birch. This greening represents a profound ecological shift. More than two million square miles of Arctic vegetation grows atop soils rich in stored organic matter. Whether this soil organic matter remains stored or is respired and released to the atmosphere in the coming decades depends critically on how the microbial communities living in Arctic tundra soils respond to ongoing greening. Because the activity of these microbes is tightly limited by the availability of nitrogen, how they acquire and allocate this scare nutrient will shape the fate of Arctic soil carbon. This project will quantify metabolic responses of tundra soil microorganisms to vegetation greening by measuring differences in microbial protein production among sites that vary in the extent of greening and across the growing season. This effort will close a key knowledge gap and link local ecological change to larger global biogeochemical cycles that the Arctic helps regulate. This work will also train graduate and undergraduate STEM students in hands-on field and laboratory skills.

This project will be the first systematic, microbial-community-wide (integrating both bacteria and fungi) study of protein-level gene expression and nitrogen allocation patterns in Arctic tundra soils. Fieldwork for the project will be centered in the Toolik Lake area, Alaska, where more than thirty years of longitudinal ecological research has established a rich temporal baseline and well-understood biological and environmental context for this study. To generate a deep and comprehensive view of protein-level gene expression across the soil microbial community, quantitative metaproteomics by in vitro peptide isotope tagging will be employed for high-precision, broad-coverage protein quantification. In addition, a novel proteomic nitogen-15 isotope tracking technique will directly assay the incorporation and proteome allocation of nitogen-15-labeled substrates by specific members of the community. These measurements will afford insight into key open questions in Arctic soil biogeochemistry, including: 1) which microbial metabolic processes are most limited by nitrogen scarcity throughout the deepening active layer, and how does vegetation greening affect belowground nitrogen competition? and 2) how does Arctic tundra soil microbial community metabolism develop, and nitrogen resource allocation shift, from spring thaw to fall freeze, and how does vegetation cover modulate this seasonality? Vegetation greening is a central process linked to a host of environmental drivers and ongoing shifts in the broader Arctic, and this project will help to put understanding of Arctic soil biogeochemistry on a more mechanistic, predictive footing.